Micro Electro Mechanical Systems for NSF/NASA/DOD Applications Workshop

This grant will support a multi-agency workshop on microelectromechanical systems (MEMS). The purpose of the workshop is to introduce MEMS to a broad range of Federal agencies, and to seek applications of the technology in the solution of problems faced by these agencies. Three specific objectives of the workshop are (1) to introduce MEMS to representatives of several Federal agencies, (2) to identify MEMS applications relevant to these agencies, and (3) to provide a high-quality report on the status of MEMS technology and a prediction of future developments and applications.